Conference on Fundamental Aspects of Quantum Theory; Columbia,SC; December 14-16, 1989 (Physics)

This proposal is for a conference on "Fundamental Aspects of Quantum Theory" at the University of South Carolina, December 14-16, 1989, to commemorate the 30th anniversary of the Ahronov-Bohm effect. Topics include quantum cosmology, Berry's phase, and the measurement problem.